Mathematical Sciences: Periodic Orbits of Billards and Geometric Lorenz Attractors

9404419 Rychlik The research entails topics in the dynamics of billiard-type systems and estimates of the spectrum of the Laplacian in convex domains. Another component of the research involves the geometry of Lorentz attractors and homoclinic orbits. This research figures prominently in dynamical systems and has potential applications to other areas of mathematics and topics in mathematical physics. ***